C-signal Perception in Myxococcus Xanthus

9304083 Shimkets Cell-cell interactions are essential for the development of many organisms and the myxobacteria provide a model system with which to use genetic approaches to determine the biological roles and molecular mechanisms of intercellular communication. The CsgA gene product, the C-signal, is a novel type of developmental timer whose extracellular concentration rises steadily during fruiting body formation of the myxobacterium Myxococcus xanthus and induces successive stages of the developmental pathway at successively higher concentrations. These studies are expected to reveal how the C-signal is perceived by developing cells to express rippling, aggregation, and sporulation genes. The CsgA receptor gene will be identified and cloned using one of four approaches : dosage suppression, construction of heterologous signaling systems containing components from different myxobacterial species, reverse genetics following purification of the receptor protein, or molecular recognition. Putative receptor genes will be sequenced and examined for amino acid homology with known receptors. The chromosomal wild type allele will be replaced with a disrupted allele to determine if a receptor null mutation blocks development at the same point as a csgA null mutant. Radiolabeled CsgA will be used in binding studies to determine the associate constant and receptor number during different stages of development. The cellular location of the CsgA receptor will be determined by colloidal gold electron microscopy. Genetic analysis of the socA (for suppressor of CsgA), and socB suppressor loci will continue, to learn the normal developmental roles of the wild type suppressor genes as well as the mechanisms by which the mutant alleles suppress csgA mutations. %%% This research allows the techniques of bacterial molecular genetics to be used to answer fundamental questions about how cell differentiate. Dr. Shimkets is studying a type of cell- to cell communication that up until know was only known in higher organisms. ****